Education, Income Distribution and Political Economy

Education is central to a large number of issues that economists consider important: the distribution of income, the growth rate of an economy, and the determination of a country's comparative advantage are a few prominent examples. Despite this, the factors that determine the nature of the educational system have received relatively little theoretical attention. The purpose of this project is to develop models to study the endogenous determination of educational policy. It will do so by studying various interactions among income distribution, the political system, and key attributes of the educational system. Quality, accessibility and community composition are the characteristics this project plans to concentrate on, with special attention paid to the consequences that arise from the fact that education is provided by both the private and the public sector.